Adaptive Signal Processing Based on High-Order Statistics

This research is exploring new results from the statistics literature which are expected to have significant advantages for the performance and accuracy of signal models. Previously only minimum - phase (or symmetric) models could be identified from observed data due to an implicit Gaussian assumption through the conventional restriction to second-order statistics. By use of higher-order cumulant statistics, the researcher is able to identify a good approximation to the true phase of the signal model. This will be important in applications to adaptive channel equalization adaptive echo cancellation, and adaptive array processing. This proposal was rated first out the sixteen SBIR proposals submitted to the MIPS Division. Funding in the budgeted amount of $49,499 for 6 months is highly recommended for this Phase I proposal.